Curriculum Resources for K-8 Technology Education

9911808
BRITTON

This project will create four curriculum resources that would be of benefit to science teachers needing orientation to technology: (a) a resource guide to exemplary curriculum materials in technology education at the elementary and middle school grades; (b) a workshop series that uses the guide to introduce technology concepts to teachers and curriculum specialists in technology and science education; (c) a manual that will enable professionals to run similar workshops; and (d) a website for dissemination. The resources to be selected will be consistent with standards for technology education, as published by the International Technology Education Association. The resource guide features emerging curriculum materials from projects funded by the National Science Foundation. Materials will reflect technology education, science curricula that emphasize technology education, and curricula that integrate technology and other subjects.